Theoretical Nuclear Structure Physics

This is a renewal proposal for continuing the nuclear theory program at Louisiana State University on a microscopic description of heavy deformed nuclei. Extensions are projected to study giant resonances, super deformation and nuclear currents.